CyberAI Innovation: Red Team to Blue Team: A Lab-Centric Curriculum and Educational Platform for Large Language Model Security

This project aims to serve the national interest by developing an experiential learning–based, lab-centric curriculum and an educational platform for large language model (LLM) security. LLM-integrated applications, including agentic systems such as OpenClaw, Codex, and Claude Code, are increasingly deployed in the real world to solve tasks in diverse domains such as healthcare, finance, legal services, software engineering, and scientific research. However, security remains a critical challenge for their deployment. The rapid emergence of LLM security risks calls for a new generation of cybersecurity professionals. To bridge the gap between real-world needs and workforce preparation, this project’s innovation is twofold: (1) developing a systematic, lab-centric curriculum on LLM security for various stakeholders, including students, current workforce, and the imminent generation of workers, and (2) developing an educational platform with labs to enable hands-on learning to build problem-solving skills in securing LLM-integrated applications. The broader significance of this project is to help lay the educational foundation for securing LLM applications that people increasingly rely on in daily life.

The scope of this project is to build educational materials on uncovering security risks of LLM-integrated applications and designing effective mitigation strategies. The goal of this project is to enable learning through hands-on experience across three interconnected thrusts: (1) lab-guided understanding of LLM fundamentals and LLM-integrated applications, (2) heuristic-based and optimization-based red teaming methods, and four hands-on labs to help students understand security threats, and (3) prevention-based, detection-based, and attribution-based defense methods, and three hands-on labs to implement, test, and refine defenses. The project plans to study the effectiveness of lab-centric experiential learning in improving student engagement, conceptual understanding, and problem-solving skills in LLM security. The evaluation of the project intends to focus on the usability and instructional value of the educational platform across classroom and self-guided learning environments. The project plans to open-source an educational platform and associated curriculum materials on LLM security, e.g., labs, quizzes, documentation, grading toolboxes, and demos, that can be adopted by students, instructors, and practitioners across the artificial intelligence and cybersecurity communities. Dissemination activities of the project’s outcomes intend to include talks, conference presentations, course integration, and community-engaged challenges and competitions. This project is supported by the CyberAICorps Scholarship for Service (CyberAI SFS) program, which funds proposals to increase national capacity to educate and train professionals in Artificial Intelligence (AI) or Cybersecurity, and to support their placement and retention in the CyberAI mission of government organizations. The Scholarship Track funds academic institutions to award scholarships to students in exchange for their government service. The Innovation Track seeks transformative education proposals in the areas of AI, cybersecurity, or the integration of AI and cybersecurity.